Cell Growth Factor from Snake Venom

Snake venom is a store-house of numerous bioreactive proteins. These proteins are enzymes, toxins and may be growth factors. Venoms from several species of snakes in concentrations from 100 to 6.25 ug/ml were tested on primary culture of mouse kidney and spleen cells and established PC-12 cell cultures. Venoms from all tested species of snakes were found to be cytolytic, except for Crotalus atrox and Oxyuranus scutellatus, which showed growth proliferative effects on these cell cultures. The venom of C. atrox was studied further. The growth of primary cultures in medium containing 10% fetal bovine serum (FBS) was equivalent to the growth obtained in serum free medium, containing 50 to 25 ug/ml crude venom. The growth of PC-12 cells was accelerated tremendously in serum free medium supplemented with venom. Thus, it is apparent that snake venom contains a cell growth factor. Snake venom derived growth factor (SVGF) will be isolated in purity from the venom of C. atrox by HPLC or isoelectric electrophoresis. Each fraction will be tested for growth on PC-12 cells. The fraction showing a cell growth effect will be tested on variety of cell lines and with different media. Proposed research will lead to a novel cell growth factor, which will replace the use of fetal bovine serum (FBS) in cell cultures. Use of SVGF may be extended to grow epithelial cells from burn victim for creating autograph.